Scanning Electron Microscopy at Ursinus College

The goal of this project is enhance an experimentally oriented curriculum that gives students experience in modern microscopy techniques. The scanning electron microscope, an I.S.I. model ABT 55i, with WET-SEM capability and inherent ease of use by undergraduates, is being used in the introductory biology sequence, five upper division laboratory courses, and the student-oriented research program. The instrument serves as the focal element in a curriculum designed to offer students a progression of vertically-integrated experiences with modern